Workshop on Information Framework Technology for Integrated Design/Engineering Systems; Callaway Gardens, Georgia; March 13-15, 1989

In recent years there has been an explosion in the development and use of computer based tools to support engineering, design and manufacturing. In most cases, however, the tools have been developed independently and applications are implemented in a largely autonomous fashion. To improve engineering productivity there is a critical need to advance the technology for management of the information in the analysis, design and manufacturing process. The purpose of this grant is to hold a workshop with industry, university and government representatives to help identify critical research issues in engineering information technology which need solution to support the design of complex engineering products into the twenty- first century.